Information Technology and New Economic Growth Opportunitiesfor the 90's

This planning grant is for an international workshop convening in Tokyo, September, 1988. Its primary purpose is to plan for future collaborative research on the topic of information technology and economic growth. This grant permits eight U.S. researchers in various disciplines to participate in the workshop, which is organized by the University of California at Irvine, Gakushuin University in Tokyo, the Maastrict Economic Research Institute on Innovation and Technology in the Netherlands, the University of Warwick in the U.K. and the Organization for Economic Cooperation and Development. The workshop is organized around six themes: Information and communication networking:externalities, spillovers and synergies; Industrial growth potential and factors limiting adoption and diffusion; new means for earning, producing, consuming and saving;capital markets, venture capital, and market imperfections;labor markets, skills, training, and the educational system, and: Optimal government policy for the production and application of information and communication technologies. Papers from the workshop will be disseminated as journal articles and as a book.